RESEARCH INITIATION: Spectroscopy and Kinetics of Long Pulse Electron Beams

Long pulse relativistic electron beams (LPREB) have been studied for use in free electron lasers, accelerator technology, and high power microwave systems. Little work has been done, however, in examining LPREB for applications to visible and ultraviolet (uv) gas laser systems. The purpose of the research is to study the visible and near uv emission of LPREB produced plasmas using two electron beam accelerators and to interpret these results using a rate equation based computer model of the chemical kinetics. Time resolved visible and uv emission spectroscopy of inert gas plasmas (He, Ar and Ne) will be performed on two accelerators. One accelerator is the Febetron with voltage equalling 500 kV, current equalling 1.4 kA, and pulse length 250 ns. The second accelerator is the Michigan Electron Long Beam Accelerator (MELBA) with voltage of 1 MV, current of 10 kA, and pulse length of 1 us. The experiments vary pressure, current, and voltage values, pulse length, and gas composition. Theoretical studies of promising parametric regimes are planned with the computer model to optimize particular results and to indicate the potential of LPREB for gas laser systems.